Acquisition of a Dilution Refrigerator

This modestly high power dilution refrigerator will be used for studies of spin-polarized quantum systems. This refrigerator will be used in collaborative efforts to study atomic hydrogen with a Lyman-alpha laser, to study and develop a cryogenic hydrogen maser (CHM), to study atomic scattering at low temperatures, and a number of other experiments. The laser experiment is directed at obtaining conditions for Bose-Einstein condensation, which would be of fundamental significance for physics. In addition, the laser provides a valuable diagnostic tool for the study of atoms in magnetic traps. The CHM promises not only to be more stable than any existing oscillator, but by virtue of its stability will enable precise measurements of interaction constants in this fundamental system. Scattering experiments will enable the determination of many very important cross sections never before measured. A number of other experiments promise to yield rich new phenomena.